A Nonlinear Sensistivity Analysis Approach for Composites Under Large Deformations

The purpose of this research is to develop a semi-analytical sensitivity analysis procedure for predicting the effects of geometric and/or material nonlinearities and perturbations on the nonlinear large deformation response of composites. Of particular interest is the post-failure behavior. For the class of problems being considered, methods such as the global finite difference technique or the traditional incremental methods lead to erroneous results because of the non-smoothness of the constitutive equations of the composite. Instead, a direct differentiation approach and a variational approach that uses the adjoint state concept will be studied in order to include the effects of non-smoothness in the stress-strain relationships. Results obtained from the sensitivity analysis procedure will be compared with test data as a step in the verification of the proposed methodology.